GK-12: STEM Graduate Teaching Fellows Program

In partnership with Hewlett Packard Foundation, the Boston Public Schools, the Boston Museum of Science, and the New England Aquarium, Northeastern University will develop and implement a training program for graduate teaching fellows and K-12 classroom teachers in science, mathematics, engineering, and technology (SMET). The goal is to support teachers in their efforts to increase student excellence in SMET, improve achievement scores, and better prepare classroom students for future careers in an increasingly complex technological society. The program will use a systematic approach to assess classroom needs, develop material that incorporates Boston Public Schools curriculum standards and is attuned to the needs of a diverse student population. Discipline-specific teams comprised of Northeastern University faculty and graduate fellows will work with the classroom teachers to create lessons. The graduate students will serve as the conduit between classroom teachers and Northeastern University faculty.